Mathematical Sciences: Topics in the Representation Theory of Finite Groups

This research is concerned with the representation theory of finite groups and group cohomology. The principal investigator will work on Mackey functors; Alperin's conjecture; the development of computer software; group cohomology calculations; stable summands of classifying spaces; and perfect isometries of blocks and derived equivalences. The research supported concerns the representation theory of finite groups. A group is an algebraic object used to study transformations. Because of this, groups are a fundamental tool in physics, chemistry and computer science as well as mathematics. Representation theory is an important method for determining the structure of groups.